Collaborative Research: SHF: Small: Model-driven Design and Optimization of Dataflows for Scientific Applications

The increasing capability of high-performance computing (HPC), cloud computing, and edge computing systems directly translates into the ability to generate more data and execute more extended analyses, thus expanding the range of natural phenomena that scientists can study using dataflows in scientific domains such as chemistry, materials sciences, molecular biology, and drug design. At the same time, the steady growth in the complexity of these dataflows also results in new challenges in the effective composition of single data tasks into scalable dataflow pipelines. This project addresses these critical challenges by developing solutions to optimize dataflow pipelines across heterogeneous resources. This project builds a broader community of HPC experts, who will have a far-reaching impact on the efficient development of dataflow pipelines supporting scientific applications. The team of researchers promotes increased participation of students through mentoring. Furthermore, the researchers develop data analytics training tailored for early career professionals and share the material with the Midwest Research Computing and Data Consortium and the attendees at the bi-annual NSF/TCPP (Technical Community on Parallel Processing) workshops on parallel and distributed computing education (EduPar).

This project has four main research components. First, the project defines a taxonomy of common dataflow motifs used in scientific domains, ranging from simple producer-consumer pairs to complex pipelines with multiple producers and consumers, by mapping these motifs to real scientific applications. Second, the project designs a middleware layer to handle dataflow pipelines executing on HPC, cloud, and edge resources. Third, the project develops a 2-step model for mitigating pipelines that result in data loss and inefficiencies associated with the slowdown in data production or consumption in dataflow pipelines. Finally, the project trains a broader community to utilize the taxonomy, middleware, and model to optimize real scientific applications by identifying potential bottlenecks and making necessary adjustments to maximize pipeline efficiency and accuracy, continuously monitoring and optimizing pipelines to ensure the highest quality scientific output possible.